American Statistical Association/Science Resource Studies-National Science Foundation Research Program

The American Statistical Association will administer a research program under this grant with the objective of fostering collaborative and interdisciplinary research efforts that will continue to stimulate the development and advancement of the methodology and research relevant to a wide range of statistical
programs. The results of research conducted under the ASA/SRS-NSF Research Program will be made available to the scientific community through articles that the researchers will submit to scientific journals; papers prepared for the ASA and other professional society meetings that may be published in proceedings; and papers and other publications that agencies disseminate in working papers, statistical notes, or technical report series.

The ASA/SRS-NSF Research Program will benefit the academic researchers who participate and the larger scientific and statistical communities. The researchers will benefit from the opportunity to work on important problems in a non-academic setting and exposure to the environment of Federal statistical agencies. The larger scientific and statistical communities will be enriched by the addition to scientific knowledge that results from the research conducted under the auspices of the program.